Analytical Pulse Voltammetry

This project is in the general area of analytical and surface chemistry and in the subfield of electroanalytical chemistry. During the tenure of this two-year continuing grant, Professor Osteryoung and her students will apply pulse voltammetric techniques to the quantification of benzodiazepines, to the study of the interactions of ions with cyclodextrins, and to the electrolytic formation of thin films. Specific experimental systems to be investigated include complexation of ferrocenecarboxylic acid and heme entities by cyclodextrins, development of methods for benzodiazepine analysis in nonaqueous media, novel applications of monodisperse spheres to the study of mass transport in electrochemical systems, and electrocrystallization of Ba-Cu-O superconductors. %%% This research will expand the knowledge base and broaden practical utilization of fundamental electrochemistry. Related areas that will benefit from this work include pharmacoanalysis, enzyme modeling, and high temperature superconducting materials.